A Moss Flora of Central America, Part 3

This project is focused on the production of the Moss Flora of Central America, which will comprise taxonomic and revisionary treatments of 19 families, 70 genera, and 210 species native to the entire Central American region. Publication in hardcopy and electronic versions will be in Spanish and English, and available on-line, with high-resolution line illustrations. The moss flora of Central America will involve then aming of large numbers of unnamed collections that have accumulated over the last twenty-five years. Duplicate material from these collections will be treturned to their country of origin where as a primary reference collection it will greatly enhance the ability of Latin American bryologists to name their specimens and collections. The naming of Central American mosses in a revisionary context will allow msses to be meaningfully incorporated into other interdisciplinary studies, most notably ecological studies.